Products and Characteristics of Ozone Induced Oxidative Coupling of Phenols and Aromatic Amines in Water

This is an award to support research to determine the nature of chemical compounds that are produced when ozone is used to treat water that contains phenols and aromatic amines. Ozone reacts with aromatic organic compounds, rapidly cleaving the ring double bonds to yield non-aromatic products that typically are of lower toxicity and more biodegradable than the precursors. In this project, a series of studies are planned that will characterize the products formed during ozonation under conditions that simulate its use for treatment of water that has been polluted with phenolic compounds. Analytical methods that will be used to characterize the products of ozonation include use of gas chromatography/mass spectroscopy for volatile compounds of low molecular weight and adaptive methods using mass spectroscopy for non-volatile compounds of high molecular weight. Work will include determination of the toxicity of intermediate and final compounds formed by use of their impact on exertion of the biochemical oxygen demand and by their toxicity toward Daphnia Magna. Use of ozone for total oxidation of organic water pollutants is generally not cost-effective, however its use to convert toxic compounds of limited biodegradability into those which are readily biodegradable may be an effective way of obtaining the advantages that accrue to use of ozone in treatment of water and wastewater.